CSI - An Adaptive Data Pulling Framework for Supporting Time-Critical Streaming Media Applications

Timely delivery of data streams is important to time-critical
applications relying on streams of dynamic data. Drastic reduction
on the sending rates of data streams typically has negative impact on
the operations of such applications. Effective rate adaptation is
needed to make data streams adapt to network congestion through slowly
varying their sending rate. This research project is motivated by
the need of streaming dynamic radar data at the required rates from
radars to a control center in the surveillance application using ganged
ground-based radars. This application is crucial to the operation
of the unmanned aerial vehicles.

In this research project, an adaptive data pulling framework is
studied to support stable data streaming. This framework consists
of a transport-layer congestion control scheme and an
application-layer data pulling control mechanism. The
application-layer data pulling control mechanism allows the
application actively fetch data from sources. The transport-layer
congestion control scheme adopts a new rate control method which
provides weighted fairness to data streams. Weighted fairness
among data streams is the desired feature for controlling the sending
rates of streams carrying layered encodings. Weighted fairness
means that the throughput of a stream is degraded reversely
proportional to its priority when the network becomes congested.
Weighted fairness brings new vision on rate control for data
streaming. Stability and responsiveness to congestion indications
are the two key research questions of the new rate control scheme.